Teacher Institute for Environmental Studies -- A Planning Grant

This planning grant is to bring together the elements needed for writing and submitting a district wide grant for teacher enhancement in the area of environmental studies and earth sciences. Specifically, the planning grant will be used to build a consensus of support from among the local businesses, colleges, government agencies and secondary teachers; establish two high school teams of teachers to plan two curricula; plan the instructional components needed for the proposed institute. The system is now planning to establish a school within a school in 1993-1994, devoted to the environmental and earth sciences which is closely tied to research projects at sites of various state and federal agencies. The plan is then to broaden the participation in these projects to all of the district schools in the coming years. The project builds upon the district's strategic location where there are many locations of ongoing research including; 1) Loxahatchee River, a federally designated wild and scenic river, 2) Jonathan Dickinson State Park which includes a number of threatened ecosystems, 3) Jupiter Marine Science Center, 4) Marine Life Center of Juno Beach and 5) MacArthur State Park. The Loxahatchee River Environmental Control District has already provided the annual rent and a full-time staff member to the Jupiter Marine Science Center for this project.